A Recirculating Seawater System for Use in Studying Aquatic Organisms

The aim of this project is to increase the scientific literacy and laboratory proficiency of undergraduate students in the following academic courses: "Marine Biology","Phycology", "Marine Science for Teachers", "Invertebrate Zoology Seminar", "Research Problems", "Developmental Biology", and "Aquaculture".